Engineering Biomaterials to Prevent Bacterial Infections

9410429 Bryers This project is on research to develop biomaterials that prevent the adhesion and subsequent growth of bacterial cells to these materials. The four specific aims of this research include: (1) the preparation and characterization of polyurethane substrata with surface coatings for the controlled release of antibiotics and antiadhesives; (2) the preparation of an alternate surface coating technique by plasma deposition of ethylene glycol oligomers at the polyurethane surface; (3) a study of the kinetics of bacterial adhesion to the newly created material surfaces; and (4) an examination of the rates and mechanisms of bacterial attachment in the presence of blood platelets. The results of this research could have impact on the prevention of bacterial infections for medical implants. ***